Molecular Analysis of Streptomyces Sporulation

Streptomyces is a genus of soil bacteria that undergoes differentiation in response to nutrient limitation. Among the bacterial genera known to differentiate, Streptomyces stands out because differentiation of this genus is a reproductive developmental process: one filamentous mycelial community divides into thousands of autonomous, uninucleate spores. To understand the molecular basis of cellular division and differentiation in a relatively simple organism, we have isolated and characterized nonsporulation mutants of Streptomyces griseus and have identified a gene (orf1590) involved in streptomycete sporulation. A defect in orf5190 may result in the premature and irregular formation of sporulation septa, pointing to spore wall biosynthesis as the aberrant process in orf1590 mutants. Previous studies implicate transcriptional and translational mechanisms in the regulated expression of orf1590 and the activity of its gene product. Our overall objective is to define the function of orf1590 in streptomycete sporulation by characterizing the product of orf1590. We will use molecular techniques to determine the number of polypeptides encoded by orf1590, identify proteins that accumulate subsequent to expression of orf1590, and clone the genes encoding these sporulation-specific proteins as well as proteins that are likely to play a major role in the formation of sporulation septa. These experiments have also been designed to extend our dissection of the developmental defect in nonsporulating mutants. %%% Continued analysis of orf1590 and other Streptomyces developmental genes can be expected to reveal a variety of intricate and novel regulatory cascades central to cellular division and development.